Dissertation Research: A Subgeneric Revision of the Genus Nomada (Hymenoptera: Anthophoridae)

Doctoral student Byron Alexander proposes to study the ancestor-descendant relationships within the bee genus Nomada, using morphological data from the literature, museum visits, and from borrowed collections. His advisor, George Eickwort, is a leading researcher on social insects. Both social and parasitic behavior have evolved from nest-building ancestors in this genus, and it is unclear whether 1) the social species are a separate evolutionary branch within the genus, or 2) social behavior has evolved independently several times. A well-established evolutionary framework for this group would provide the means for assessing these alternatives. The evolution of behavior is an important facet of biology, and behavior of certain insects such as bees can have important economic implications. The proposed research can have subtantial impact beyond the small community of specialists working on this taxon.